Lie Groups

Abstract for NSF Proposal DMS 99 88643
"Lie Groups" Joseph A. Wolf, U. C. Berkeley

The investigator proposes six intertwined research projects, all on the
interface between group theory and geometry. For the most part these
proposals are geometrically motivated approaches to specific problems in
modern harmonic analysis connected to the representation theory of
semisimple Lie groups. The first is an approach to construction and
analysis of singular unitary representations of real reductive Lie groups,
in two steps: (i) geometric construction of those representations, as Frechet
space representations on cohomology of homogeneous vector bundles over
flag domains, and (ii) transforming the representation space to a space of
functions on a Stein manifold defined by a system of differential equations,
by means of a double fibration transform (the complex Penrose
transform is a particular case) from the flag domain to its linear cycle
space. The second project is an approach to construction and analysis of
unitary and other representations for a class of infinite dimensional Lie
groups, the direct limits of finite dimensional Lie groups, especially strict
direct limits of finite dimensional real and complex reductive Lie groups,
both in the analytic category and in the algebraic category. The third
project is to complete the investigator's work on the Harish-Chandra
Schwartz space of a general semisimple Lie group, by synthesizing structural
analyses of the relative Schwartz spaces. The investigator's fourth project
is to complete his development of a direct reading of the character and
growth properties (asymptotics) of admissible representations of finite
dimensional real reductive Lie groups from the basic data that specify their
construction on cohomology spaces of homogeneous vector bundles
over flag domains. One goal here is to do this in such a way that is
directly applicable to the first and second projects. The fifth project
is to continue some earlier work on control theory and numerical analysis,
especially observation point placement problems and numerical quadrature
schemes, based on structural results and a priori estimates that come out of
the representation theory of real reductive Lie groups. The sixth
project, not directly analytic in nature, is to follow up on the investigator's
recent discovery of a strange relation between isoclinic spheres in
Grassmann manifolds, composition of quadratic forms, normal forms for
spaces of antisymmetric bilinear forms, and the construction of flat
homogeneous pseudo-riemannian manifolds.

These six research projects all depend on the use of symmetry to clarify
analytic (and in one case geometric) problems. Traditionally symmetry
considerations are used to simplify matters by decreasing the number of
variables, but here they are used to enable the use of insight, tools and
results from geometry and analysis. The symmetries are embodied in group
theory, which in fact is the algebraic abstraction of the notion
of symmetry. But modern Lie group theory incorporates classical analysis
(calculus, differential equations...) and is closely tied to the geometry
(riemannian, symplectic, kaehler, ...) of the spaces on which the groups
act as symmetries. An important aspect of this synthesis of
geometry and analysis is a geometric form of quantization that is
particularly well suited to the sorts of finite dimensional groups
considered in several of the projects. This geometric quantization,
originally inspired by physics and developed in some detail by mathematicians,
has in turn been very useful in a variety of settings in mathematics and
physics. This is very much the case in five of the six projects, where the
geometric quantization is combined with modern differential geometry to
understand various analytic problems. This is especially evident in the first
project, whose objective can be viewed as a sort of dequantization.